SCI: Puerto Rico Regional Network for High performance Connection

This proposal seeks to develop a regional research and education network, initially among six private institutions in Puerto Rico, and to, ultimately, connect them to the Abilene/Internet2 advanced network. Telecommunications costs are extremely high in Puerto Rico and often prohibitive for a small, private college. By creating infrastructure of their own, the intention is to build and jointly manage a network which will enhance the educational, collaborative and technological opportunities currently available to researchers and students in small, poorly funded colleges and universities in Puerto Rico.
The Puerto Rico Educational Network (PREN) will initially be composed of the following universities:

University of the Sacred Heart (USH) in San Juan
Universidad Central del Caribe (UCC) in Bayamon
Catholic University of Ponce (PUCPR) - Ponce campus
Catholic University of Ponce (PUCPR) - Mayaguez campus
Catholic University of Ponce (PUCPR) - Arecibo campus
Politechnical University of Puerto Rico (PUPR) in San Juan

Additional proposed connectors will be added in the second year of the project and may include

Carlos Albizu University - Old San Juan
American University - Bayamon
Universidad Central de Bayamon - Bayamon